Agencies of Change: The National Science Foundation and Federal Patronage of Biology (History and Philosopy of Science): VPW

The investigator is completing a book on the National Science Foundation and federal patronage of the biological sciences in the period of 1945-1975, viewed as a case study for the illumination of broader themes on science and public policy. The existing study is a good agency history, showing that individual decisions as well as institutional dynamics have shaped NSF patronage of biology in a pluralistic system of federal support of science. To reshape the manuscript so that it can become a significant work in the history of science, alternative points of view using sources other than NSF need to be incorporated. Among the issues to be investigated are: tensions between basic and applied research and between biology and medicine; strategies of supporting basic biology in the context of a pluralistic system of federal funding agencies; competition with National Institutes of Health; elitism versus support of the infrastructure of science; and the role of federal "science managers." With past concentration on agency records, through new research in the recent history of biology and in the history of science and education policy, the investigator will incorporate a broader range of perspectives. Four areas of biology, each with different patterns of federal support, will be examined in order to address the key issue of how the development of biological ideas and institutions relates to patterns of federal patronage, namely: (1) the revolution in molecular biology; (2) photosynthesis; (3) systematic biology; and (4) ecology. This effort is to transform a narrative heavily based on institutional records into a case study for illumination of broader themes of science and public policy. Thus, in attempting to integrate the agency history with the history of biology, the question of what difference did NSF make to the biological sciences will be addressed. The project furthers VPW program objectives to provide opportunities for women to advance their careers in science or engineering through research, and to encourage other women to pursue careers in these areas through the investigators' enhanced visibility as role models on the host campuses. In this project, the proposed activities which contribute to the second objective include: teaching courses on Women and Science, the Social History of American Science, and the History of Medicine; giving seminars; organizing a symposium on women and science in conjunction with the Women's Studies Program; developing an exhibit on early women scientists in Florida; and counseling women students.